Systematics of Some Termitophilous and Myrmecophilous Staphylinidae

The revision of the classification and phylogeny of the Dorylomimini (beetles which parasitize ants) is proposed. This study should contribute to the understanding of the evolution of beetles which live in ant colonies and parasitize ants. It should also contribute evidence for the understanding of ant evolution and to the understanding of the integrating mechanisms that permit foreign organisms to live in societies of social insects.